REU Site: Ecohydrology of Tropical Montane Forests—Diversity in Science, Interdisciplinary Breadth, and Global Awareness

This REU site will support eight students per year, recruited nationwide from 2-year and 4-year institutions, to participate in a 10-week international research experience. Participants will work under the guidance of Texas A&M University (TAMU) faculty from four colleges (Agriculture and Life Sciences, Engineering, Geosciences, and Bush School of Government), alongside international experts based in Costa Rica. Participants will spend 5 weeks on-campus at TAMU and 5 weeks at the TAMU Soltis Center near San Isidro de Peñas Blancas, Costa Rica. This program aims to enhance student development towards future careers in science, technology, engineering, and mathematics (STEM) by A) demonstrating the foundational importance of Diversity in Science; B) instilling competencies and appreciation for Interdisciplinary Breadth while broadening awareness of the interconnection between forests, water, people, and planet; and C) fostering Global Awareness by providing a transformational international research experience within the tropical forest and nearby sites. In addition to conducting research projects, students will undertake professional development activities to foster their acceptance of a place in STEM research and continuing education and participate in cultural exchanges and hands-on learning projects that enhance their ability to live and work effectively in a global society. The expected outcomes include joint faculty-student publications in leading research journals, research conference presentations, and studies to assess the success of international field experiences. The project directors will share strategies to recruit student cohorts, program design and management, and building successful international REU programs through workshops and other far-reaching outlets.

The unique learning environment of this international REU site supports crosscutting discoveries that relate changing dynamics and land management to tropical ecosystem function and associated hydrological services provided by forests for local communities, e.g., clean reliable drinking water and hydropower generation. Key science questions will include, among others: how will altered climate affect tropical forest ecosystem function, water reliability, biodiversity, and soil carbon sequestration?; how does land management affect the land-atmosphere interaction through changes in evapotranspiration, leaf wetness duration, and productivity?; and how are hydrological services provided by forests for local communities affected by climate, land management, and natural geology? Cohort-building activities are designed to create a supportive learning community to improve skills in critical thinking, problem solving, communication and collaboration. Educational program assessment will also be conducted to understand the full timeline of student experience and self-conception as researchers. In addition to standard pre- and post-program surveys, more frequent assessments will be used to evaluate students’ experiences with overconfidence versus struggle cycles for various aspects of the research process. Additional outcomes of this program include workshops through the TAMU Center for Teaching Excellence and assisting with the TAMU Office of Undergraduate Research on topics such as application design, processes for recruitment and selection, setting appropriate expectations, cohort-building, designing professional development aimed at ‘entering research’, and building successful international programs outside of the study abroad model.